Integrating the Microcomputer in Student-Oriented Introductory Physics Laboratories

The University of Kentucky Hazard Community College will purchase a complement of scientific and computational equipment to improve instruction in introductory physics laboratory courses. The equipment, which includes air tracks, oscilloscopes, function generators, microcomputer interfaces, sensors, and motion transducers will allow students to obtain "hands-on" experience in the use of modern techniques for data acquisition and analysis. The improved speed and accuracy achievable with this equipment will allow students to explore a wide range of basic physical phenomena, and should help them gain greater understanding of the underlying physical principles. The University of Kentucky Hazard Community College will match this NSF grant with an equal amount of funds.